Instrumentation for the Undergraduate Cellular and MolecularBiology Programs

The Biology Department of Hiram College is engaged in a curricular program of enhancement called "Project Excellence." Under the aegis of this campaign, two electron microscopes (a transmission and a scanning EM) have been obtained recently for the expansion of the Molecular Biology program. This current project provides ancillary instrumentation to complete the electron microscope facility. An ultramicrotome, glass knife maker, critical point dryer, gold sputtering device, rotary vacuum pump and two specimen polishers round out the suite of instruments needed to prepare specimens for ultramicroscopic study. In addition, this award is providing an ultracentrifuge to broaden the college's capabilities for student laboratory experiences in molecular biology.